Acquisition of a Light Microscope

This is a proposal for funds to purchase a research-grade light microscope for four projects: (i) a molecular genetic analysis of the Drosophila olfactory system; (ii) a molecular and developmental analysis of the Drosophila E75 gene, a model system for analysis of steroid-triggered regulatory hierarchies; (iii) a molecular, genetic, and developmental analysis of the positional control of leaf cell differentiation in maize; (iv) an analysis of the developmental regulation and function of the mammalian transcription factor AP-2. For each of these projects, a high-quality light microscope facility is crucial.